Research Experience for Undergraduates, A Site Proposal

9424046 Hardy A "Research Experiences for Undergraduates Site" will be supported at Florida International University. Applications will be solicited in the Greater Miami area, and more generally throughout parts of Florida. Students admitted to the program will join research projects in various aspects of atomic physics, nuclear physics, and polymer studies, for ten weeks during the summer of 1995. ***